Collaborative Research: Reevaluating Pre-denitrification BNR for Low Molecular Weight Dissolved Organic Nitrogen and its Impact on Phytoplankton Bloom Dynamics in Coastal Waters

Coastal waters are contaminated by nutrient-rich run-off that stimulates the dense growth of aquatic plants known as algal blooms. In some cases, algal blooms cause oxygen depletion, fish death, and food web changes that threaten the sustainability of these waters. Significant reductions in the nutrient-rich run-off from urban areas has been achieved by advanced or upgraded wastewater treatment plants (WWTPs) that can effectively remove these contaminants. However, despite past successes, many coastal systems still have excessive algal blooms. The investigators hypothesized that the cause of continued growth of algal blooms are engineering nutrient treatment processes that lead to the production of different forms of these nutrients that continue to stimulate their growth. To examine this hypothesis, this research will investigate the potential linkage of advanced WWTP discharge and algal bloom formation in coastal waters, with the goal of developing new and more effective nutrient reduction strategies. This research is significant because it could potentially provide an explanation for persistent oxygen depletion in coastal waters even after significant decreases in nutrient inputs from WWTP discharge. If successful, this research could help develop new strategies for WWTPs to mitigate nutrient effects in impaired coastal ecosystems to better protect the Nation's water security.

The objectives of this research are: 1) to evaluate pre-denitrification biological nutrient removal (BNR) processes, the most common way to reduce inorganic nitrogen (N) discharge from WWTPs, for the formation of low molecular weight dissolved organic N (LMW-DON); and 2) to better understand the impact of BNR processes on suspended algal (phytoplankton) production and composition in coastal waters. The hypotheses are that: 1) the pre-denitrification BNR processes are prone to produce significantly larger amounts of LMW-DON than conventional activated sludge systems; 2) LMW-DON leads to unexpectedly larger phytoplankton biomass yield compared to inorganic N; and 3) LMW-DON selectively affects phytoplankton community composition, favoring harmful bloom taxa. To test these hypotheses, this research proposes four specific aims: 1) document LMW-DON in WWTP effluents; 2) investigate the production of LMW-DON in pre-denitrification BNR; 3) investigate phytoplankton community responses to effluents laden with different level of LMW-DON; and 4) investigate the effect of cation-enhanced bioflocculation on effluent LMW-DON. This collaborative research combines expertise in Environmental Engineering with Environmental Biology and Ecology. This research will employ in situ and laboratory-based bioassays on Neuse River estuary (NC) and Long Island Sound (NY-CT) water to investigate the qualitative and quantitative effects of N in effluents on phytoplankton production and community structure. This research will also explore the addition of cations in wastewater systems as a potential solution for minimizing production of effluent LMW-DON. This interdisciplinary collaborative research will have far-reaching impacts for the understanding of the role of WWTP-driven LMW-DON in both eutrophication and structuring of phytoplankton communities in coastal waters. Furthermore, the project will shed light on mechanisms coupling specific N inputs to coastal eutrophication and harmful bloom dynamics. The results of this research can transform how N is managed to mitigate eutrophication in coastal waters.